Excellence in Research: A Network-centric Framework for Cyber Threat Intelligence

This project seeks to develop a Network-centric classification as the central component of a Cyber Threat Intelligence framework. This framework will permit security personnel to analyze a broad spectrum of information harvested from different sources. In addition, the research proposes an analytical approach to the study of network structure and the prediction of network behavior in the context of this framework. The ability to accurately model these characteristics provides a strong theoretical and practical basis for the Cyber Threat Intelligence framework.